Research Initiation: Non-Planar Computational Geometry

The proposed research concerns algorithmic and combinatorial problems of computational geometry in a non-planar setting. The following problem domains will be considered: higher-dimensional convex problems, in particular questions about their decomposability and query problems such as point location and ray shooting; finally, the notion of a Riemann surface as a potential computational and conceptual tool in computational geometry.